Collaborative Research: Biodiversity Survey of Freshwater Algae of the Hawaiian Islands

An award has been made to the University of Hawaii under the direction of Dr. Alison Sherwood to conduct a biological inventory of the freshwater algae of the Hawaiian Islands. Dr. Patrick Kociolek of the University of Colorado at Boulder, and Dr. Jeffrey Johansen of John Carroll University are collaborators on the research. This project will produce the first comprehensive, well-illustrated freshwater algal flora of a tropical region for anywhere in the world. The principal freshwater habitats of the main Hawaiian Islands will be surveyed and collections will be identified using morphological and molecular analyses. The objectives are to 1) establish long-term archived collections of Hawaiian freshwater algae morphological and genetic studies, 2) make all data available through a project database and website, and 3) describe newly discovered freshwater algal taxa from the Hawaiian Islands. This project blends traditional taxonomy with bioinformatic analysis and data display. The survey brings together a top-tier team of algal taxonomists, all of whom have previous experience with the Hawaiian algal flora, to collect, document and describe the freshwater algae of the Hawaiian Islands. Work will be coordinated through the University of Hawaii and will bring together researchers from four different institutions and enhance partnerships with multiple agencies.

Five graduate students, five undergraduate students and a postdoctoral fellow will be trained in algal surveying and culturing techniques, morphological identification of freshwater algae and molecular methods. Pacific Islander undergraduate students will be hosted through research internships each of three summers through the University of Hawaii’s Undergraduate Mentoring in Environmental Biology program. A year-round undergraduate research internship for a Native Hawaiian student will be hosted at the University of Hawaii. A family program of stream exploration through the Hawaii Nature Center will be offered each summer, aimed at middle school students. Surveys in taro fields will foster communication between the researchers and farmers from the Native Hawaiian community. In addition, the results of the proposed surveys will be made available to the scientific community and beyond through the establishment of: 1) the online Hawaiian Freshwater Algal Database, and 2) a website providing summary data for species.